Issues in Software Testing

Several Issues in software testing will be studied including: o An analytic investigation of partition testing. o The relationship between program complexity and test data adequacy. o An investigation of ways to compare test data selection and adequacy criteria. o Extensions of prior work on data flow testing.